Support for Students to Attend the 36th Annual Division of Atomic, Molecular, and Optical Physics Meeting; Lincoln, NE; May 17-25, 2005

This award provides support for student attendance at the 36th annual meeting of the Division of Atomic, Molecular, and Optical Physics (DAMOP) of the American Physical Society. The meeting will be held at the University of Nebraska, 17-21 May 2005. This is the principal meeting covering principles of AMO physics held each year, and this award gives students the opportunity to participate in DAMOP sponsored events. As part of the activity, conference organizers will hold a special pre-conference symposium for students to hear special presentations on topics of particular DAMOP interest.